Computer Enhanced Mathematics Instruction

The Division of Mathematics has reflected the national trend toward integrating computing technology into its instruction, but to date that has been limited to hand-held graphing calculators. In order to implement further curricular changes our students must have access to desktop personal computers running mathematical software. This project implements a computer laboratory for classroom instruction and student use in differential equations and statistics. By adapting and implementing materials and practices from projects including the work on differential equations by Blanchard, Devaney, Coleman, Borelli and others and the work on statistics by Rossman, Schaeffer and others, these courses enhance instruction and broaden student activities to include work on computationally intensive real world problems. Although the initial focus is on two specific subject areas, we intend to extend the impact of the laboratory to other mathematics areas such as linear algebra and operations research.